Mobile Ballooning Measurement of Precipitation Charge and Size

There has been a lack of reliable information on the magnitude and polarity of the electric charges being carried by various kinds and sizes of precipitation particles. Although microphysical measurements have been made frequently from research aircraft, concerns for safety preclude routine flights in electric storms. An alternative is to use instrumented balloons. Scientists at the National Severe Storms Laboratory have recently been quite successful with balloon launches from a mobile balloon facility, even in high winds. Under this award, Dr. Rust will modify existing designs of particle size and charge instruments and an electric field meter for balloon use. He will fly these instrumented balloons in Oklahoma during the spring severe storm season. The measurements will be extremely important to the examination of existing hypotheses on charge separation in thunder clouds. //